Modeling Higher-Order Dependence With Cumulant Tensors

The second cumulant tensor of a multivariate distribution is its
covariance matrix, which provides a partial description of its
dependence structure (complete in the Gaussian case). Innumerable
successful statistical methods are based on analyzing the covariance
matrix, e.g. imposing rank restrictions as in principal component
analysis or zeros in its inverse as in Gaussian graphical models.
Moreover, the covariance matrix plays a critical role in optimization
in finance and other areas involving optimization of risky payoffs,
since it is the bilinear form yielding the variance of a linear
combination of variables. For multivariate, non-Gaussian data, the
covariance matrix is an incomplete description of the dependence
structure. Cumulant tensors are the multivariate generalization of
univariate skewness and kurtosis and the higher-order generalization
of covariance matrices, and allow a more complete description of
dependence. The research investigates a number of problems in theory,
estimation, algorithms, and applications around modeling higher-order
non-Gaussian dependence with cumulant tensors.

Data arising from modern applications like computer vision, finance,
and computational biology are rarely well described by a normal
distribution, though analysis often proceeds as if they were. For
example, one cause of the financial crisis and the damage it did to
many investors was an over-reliance on the variance-based risk
measures appropriate primarily for normal distributions. This can
allow risk to be in a sense hidden in the higher-order structure,
where it can be ignored or even made worse by application of
traditional risk metrics. Cumulant tensors provide a promising avenue
for modeling higher-order dependence. Success in developing these
models will have broad impacts in the analysis of real-world data with
complex dependence, particularly in modeling and managing financial
risk and in dimension reduction, and could help improve the robustness
of parts of the financial system.